Mathematical Sciences: Invariants and Endomorphisms of Groups and Modules

This award will support the study of the structure of various classes of finite and countable rank torsion-free abelian groups. Classes of Butler groups will be classified up to (quasi or near)-isomorphism by invariants in the tradition of Baer and Ulm invariants. Various applications to other areas of algebra, such as representations of finite posets and finitely generated modules over multiple pullback rings will also be considered. This project is in the general area of abelian group theory and is concerned with the classification of abelian groups. Although the classification of finite abelian groups has been well understood for a century, the classification of infinite abelian groups remains elusive. This research involves this old problem of classification of the infinite abelian groups approached by new tools from logic and analysis.